Support for Participation in the International Astronomical Union (IAU): for U.S. Participants in the 1988 General Assembly of the IAU

Meaningful participation by U.S. astronomers in the meetings of the International Astronomical Union is important. Over one- quarter of the active U.S. research astronomers are working on projects in collaboration with foreign scientists. Several large foreign instruments which have unique capabilities are routinely used by U.S. astronomers. The largest and most important international meeting is the General Assembly of the International Astronomical Union (IAU). In 1988 the General Assembly will be held in the United States; providing an unparalleled opportunity for young U.S. astronomers to meet and develop working relationships with their counterparts from foreign countries. Unlike many other international scientific unions, the IAU emphasizes scientific sessions and presentation of research results. The IAU also stresses attendance and full participation by young scientists. It is important for the continued health of astronomy in the U.S. that American scientists be able to participate in these meetings. The American Astronomical Society (AAS) will organize a program of grants for travel to attend the IAU General Assembly. Applications for travel to the General Assembly will be accepted by the AAS, and awards will be decided by a selection committee chosen by the U.S. National Committee for the IAU. The travel grant program will be publicized by the AAS at its meetings and through continuing announcements in the AAS Newsletter.